High Field Fourier Transform NMR in an Integrated Physical Science Curriculum

The chemistry faculty are updating and expanding their chemistry and biochemistry curriculum. A high-field Fourier transform NMR spectrometer is being used in the teaching of organic chemistry, physical chemistry, and biochemistry as well as in student-initiated studies and faculty sponsored research. The capability of obtaining high-resolution proton and carbon-13 spectra of complex molecules is essential in structure determination of natural products, verification of synthetic products, and the study of reaction mechanisms. Hands-on student exposure to a technology as important to the chemical and biological sciences as high-field NMR is dramatically improving the teaching of science at Evergreen. The instrument is being use as the primary analytical tool in organic chemistry, and is exposing students in physical chemistry and biological sciences, through specific experiments and student projects to the technique. The grantee is matching the award from non-Federal sources.